Proposal for Network Connection of NORDUNET to the NSFNET

NSF will share in the costs of operating a data communications link between the NORDUnet node in Sweden and the NSFNET backbone node at the JvNCnet site in Princeton, NJ. NORDUnet links the academic and research networks of five Nordic countries: Denmark, Finland, Iceland, Norway and Sweden. Collectively, the exchange of NORDUnet traffic with the NSFNET backbone accounted for over half of the total exchange between european countries and the NSFNET backbone as of July, 1989. The existing link, heretofore fully paid for by the NORDUNET Project, is used to capacity for collaborative exchanges between US and Nordic researchers.